New Catalytic Applications of Perfluorinated Phosphine Complexes

This research award in the Inorganic, Bioinorganic and Organometallic Chemistry program supports work by Professor Dean M. Roddick at the University of Wyoming to carry out fundamental studies on the coordination properties and catalytic activity of new classes of fluorinated transition metal compounds. Exceptionally active olefin oligomerization platinum catalysts have been identified. Expansion of this chemistry to related platinum, palladium, and nickel systems provides a new approach to the efficient synthesis of olefin-derived products. The chemistry of novel acceptor pincer complexes of platinum, iridium, and ruthenium provides a foundation for the development of new, more active alkane dehydrogenation and hydrogen transfer catalysts.

New catalysts and approaches to the conversion of simple olefins to complex products (polymers, plastics, etc.) impact a large cross section of chemical industry. The development of efficient approaches to selective hydrocarbon chemistry remains a primary modern challenge, and has critical ramifications in the creation of major chemical feedstocks in a post-fossil fuel world economy.